Mathematical Sciences: Commutative Algebra, Representation Theory and Combinatorics

This award will support a special year in commutative algebra, representation theory, and combinatorics. The special year will be held at Brandeis University, Massachusetts Institute of Technology, and Northeastern University during the 1990-91 academic year. Significant research has been done on the problem of determinantal ideals by mathematicians in the three areas of the special year. The purpose of this special year is to bring together researchers in the three areas who are interested in the problem so that they can clarify the current state of affairs and help define a number of promising avenues of research that result form it.